Analysis, Design, and Manufacture of High Speed Composite Tool Spindles

9522897 Argento This project will develop methods to design, build and test filament wound composite spindles for operation at rotational speeds of 60,000 r.p.m. The analytical methods, based on composite design and advanced beam theory, will predict the natural frequencies, stability and dynamic response from cutting forces, and the time history of stresses that may lead to premature failure. Complementing this analytical design work, composite spindles will be fabricated by filament winding. These spindles will be tested statically in bending and torsion, and dynamically, both in a rotating and non-rotating manner to experimentally determine the modes and mode shapes. The impact of this research will be analysis tools to take advantage of the light weigh and high stiffness of anisotropic composite spindles. This is significant because high speed machining is a way to increase productivity when machining compliant precision components. High speed spindles are a critical component for machine tools to achieve these improvements in productivity and precision.